Presidential Young Investigator Award: Surface Chemistry of Small Supported Metal Crystallites and REU Supplement

This research effort will focus on adsorption and chemistry on the surfaces of small crystallities of metals with the objective of relating surface morphology to catalytic properties.